A Modular Toolkit for Vision and Robotics -- An Experiment in Domain specific Software Architecture --

The goal of this project is to develop and experimentally verify the performance, usability and scalability of a modern programming language approach to constructing complex vision- based systems. The research combines recent advances in the theory and practice of imperative functional programming and domain-specific languages with recent innovations in the development of algorithms for performing visual tracking and vision-based motion control. Specific research objectives include: advancing the state of the art in designing domain- specific languages for rapid prototyping, developing and empirical testing methodologies for combining high-level languages with performance-critical components written in standard (imperative, non-typesafe) languages, and the validation of a high-level, high-performance programming framework for vision and robotics through empirical demonstration. The impact of this research will be the transfer of modern programming language concepts (such as monadic programming, process-algebraic approaches to concurrency, and time-varying behaviors) into a novel, non-trivial application area, the identification of the critical components of such systems with respect to both functionality and performance, and the dissemination of a flexible, portable, and freely available software environment for visual tracking and vision-based motion control.